Theory of Loosely Bound Composite Systems: High Order Corrections to Energy Levels and g-Factors

The main thrust of the research is the further development of methods to calculate QED corrections to energy levels and g-factors of loosely bound systems. Nonrelativistic quantum electrodynamics is applied to the Lamb shift in H, hyperfine splitting of muonium, Lamb shift in muonic H and the bound electrong g-factor